An Information System for the Great Smoky Mountains National Park ATBI

DBI 9974383; Johnson, Norman. Ohio State, An Information System for the Great Smokey Mountains National Park ATBI

Project Summary

The All Taxa Biodiversity Inventory (ATBI) of the Great Smoky Mountains National Park is a cooperative project involving National Park Service personnel, scientists from at least 37 universities, and 17 private organizations. Its objectives are to collect, organize and disseminate information on the distribution, abundance and natural history of each of the 100,000 species estimated to inhabit the park. The outlines of an information system to support these objectives have been enunciated in the course of three preliminary planning meetings. This work focuses on the development and deployment of a prototype for this information system that leverages existing biodiversity information products. The primary data, consisting of specimens and observations of taxa, will be collected by ATBI participants using off-the-shelf database or spreadsheet software. For this first phase of the ATBI, these data will be downloaded, transformed, and input into a central relational database system. The database will provide access to the primary data for researchers and land managers. It will be designed to bring the data into compliance with Federal Geospatial Data Committee standards on biological data and be developed in conformance with the Integrated Taxonomic Information System and National Biological Information Infrastructure.